SBIR Phase I: A Short-Wave Infrared Focal Plane Array With In Pixel Phase Sensitive Detection

This Small Business Innovative Research Phase I project will develop and deliver an indium gallium arsenide (InGaAs) active pixel focal plane array (FPA) capable of phase sensitive detection. The FPA will be sensitive to the short-wave infrared (0.9 `m to 1.7 `m) making it suitable for use with eye safe lasers. Each pixel of the FPA will act as a lock-in amplifier allowing the imager to detect low power modulated signals in the presence of high background illumination.
This functionality will be useful in search and rescue operations by enabling detection and location of a low power signal beacon. In tracking applications it will dramatically reduce the power of the eye-safe laser required for operation in a sunlit background. Important commercial applications include near infrared spectroscopy. The phase sensitive imaging technology that will emerge from this program will represent a substantial advance and will be applicable to all spectral bands.